Genuine laminations of 3-manifolds

DMS-0073029
William Kazez

Kazez proposes to study genuine laminations of 3-manifolds.
He and his collaborator, D. Gabai, are interested in understanding
the geometry of the universal cover of a manifold containing a
genuine lamination, and in particular how it is related to the
geometry of the leaves of the lamination. He also proposes to
study representations of order trees. Kazez along with
K. Honda and G. Matic seek to understand the construction of
tight contact structures from the point of view of a sutured
manifold decomposition. For fibred knots with pseudo-Anosov
monodromy, the sutured manifold decompositions are quite simple,
and they propose to study the classification problem in this
setting.

Kazez, along with his collaborators, proposes to study the
interaction and relationships between foliations and contact structures. Both structures are a study of a family of two
planes in a 3-dimensional space, but these families appear
to be extremely different. One is everywhere integrable,
that is tangent to an embedded surface, the other is nowhere integrable. In spite of this, as the ambient space is split
along surfaces, deep relationships start to become apparent.
It is these relationships that we intend to develop and exploit.